Postdoctoral Fellowship: MSPRF: Mathematical Spin Glasses and Applications to Data Science

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines such as Artificial Intelligence and Quantum Information Science, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Han Le is “Mathematical Spin Glasses and Applications to Data Science”. The host institution for the fellowship is the University of Waterloo and the sponsoring scientist is Aukosh Jagannath.